STTR Phase I: Low-Cost Autonomous Sailboats for Long-Term Ocean Missions

The broader impact/commercial potential of this Small Business Technology Transfer (STTR) Phase I project is the development of new technologies to facilitate ocean data collection. Understanding the oceans is important for climate research, naval operations, maritime domain awareness, and ecosystem preservation, yet traditional data collection methods using research ships, commercial vessels, and buoys are cumbersome, expensive, and limited in their scope of discovery. While satellites have enabled remote data collection, they are affected by weather and limited in the types of data they collect. Uncrewed Surface Vessels (USVs) - robotic boats - are promising, but even today’s smallest oceangoing USVs are too costly for many applications. Thus, many regions of Earth’s oceans are rarely studied. The technology developed here aims to meet this need by enabling low-cost deployment of sensor-equipped robotic fleets. Better access to ocean data may improve understanding of the ocean and its resources, leading to better climate modeling, improved safety, economic gains, and more effective regulations. Further, ocean monitoring and surveillance is key to understanding ocean water quality, identifying contaminants, and devising strategies to prevent future contamination and pollution of the ocean’s waters. Ultimately, cost-effective oceanic data collection may help sustain and grow the ocean economy.

This Small Business Technology Transfer (STTR) Phase I project aims to develop a small, low-cost, autonomous robotic sailboat that uses an innovative sail arrangement and weather-optimized navigation system. With a combination of affordability and utility, the technology represents a new approach for widespread oceanic data collection. This technology can be deployed virtually anywhere in the ocean, can be small (2 meters or less), and is 100% wind- and solar-powered. The research in this project seeks to further this technology by advancing two innovations: passive directional stability and weather-optimized navigation. Unlike most other robotic sailboats, the proposed USV does not need active steering to hold a course, once set. Further, the proposed USV has a navigation system that exploits the spatial and temporal variance in the weather and uses local weather data to direct the boats to navigate more efficiently. This STTR proposal seeks to address areas of high technical risk including stability of the steering system under various wind and water conditions, resistance to traveling excessively downwind during storms, effectiveness of the optimized navigation system in both actual and simulated weather conditions at locations worldwide, construction and performance of prototypes in lakes and oceans, and long-term resistance to marine environments.